Acquisition of Analytical Equipment for the Analysis of Aqueous Contaminants

9512284 Collins This is an award to provide support for purchase of analytical equipment to be used in support of Clarkson University's environmental engineering program. The research equipment obtained through this award will provide enhanced analytical capability to five investigators who are conducting research on long-term environmental effects on land to which sludges derived from treatment of domestic wastewater are applied, dynamic fluid- particle interactions on contaminant phase partitioning in aqueous systems, incineration of Kraft process pulp and paper- making sludges, thermal desorption for remediation of "manufactured" gas plant sites, metabolism of trichlorethylene in suspended growth bioreactors, and entrapment and dissolution of nonaqueous phase liquids in heterogeneous media. The proposal leading to this award was submitted in response to the National Science Foundation's Instrumentation Development and Acquisition Solicitation, NSF 94-156, Academic Research Infrastructure Program. Results of this award are expected to improve the accessibility of modern research instrumentation for use by this institution's faculty in conducting research on important topics of environmental significance and in educating students. ***